Living on the Edge: A Coastal Exhibition and Education Program

9355632 Hickox "Living on the Edge" will be the name of an exhibit in three editions that will explore multiple edges of boundaries between land and sea, air and sea, ocean bottom and overlying water, and differing water masses. Scientists have become increasingly fascinated by the study of these edges or fronts because of the new understanding it provides regarding such basic principles as the productivity of coast waters, migrations and feeding patterns of marine life, upwelling and downwelling, chlorophyll dynamics, and water quality issues, for example. The educational objectives are to bring an understanding of coastal ocean science and its social implications to broad audiences in museums and aquaria. It will consist of eight mulit-faceted interactive activity centers totally approximately 1500 square feet. Two editions of the exhibit will become part of the permanent displays at the University of Rhode Island Graduate School of Oceanography and the Museum of Science in Boston. The third will be a traveling version; the management of which will be handled by the Association of Science and Technology Centers. It will go to 12-15 venues during its three-year tour schedule. It is estimated that a total of 2.5 million will experience this exhibit. A suite of materials will be developed for use by formal educators with all three of the exhibits. These materials will include teacher training materials, exhibit-related modules for on-site interpretive programs, and traveling kits for in-class presentations.